Novel Steel Reinforcement Polymer (SRP)

The proposed research explores the development of a novel, low cost composite material aimed at
the strengthening and upgrading of reinforced and prestressed concrete members. The proposed
composite material intends to maintain and improve on the performance and installation advantages of
FRP systems, while significantly reducing their cost. This new composite material is composed of a
knitted high-strength steel cord impregnated in a polymeric resin matrix and is called SRP, for steel
reinforced polymer. The steel cord, a commodity product used in the radial tire manufacturing industry,
has the strength and stiffness of carbon fiber at a fraction of its cost. To support the development of this
novel, low cost composite material, the research program consists of the following two tasks; (1) Develop
the material constitutive relations, and (2) Conduct experimental and analytical studies that can
substantiate the feasibility of SRP for implementation into the strengthening of RC and PC
structural members. At the conclusion of this research, the SRP composite could be ready for
demonstration in the field. Some of the fundamental issues such as long-term durability would
need further study, but field demonstration will still be warranted at this phase.
This project will also be integrated within a strong education and technology transfer
program, and will involve undergraduate and graduate students in every phase of the project. In
addition, UMR is home to an NSF industry cooperation research center that deals with the
retrofit and repair of bridges and buildings with composites, and potential manufacturers of the
product and a leading concrete repair contractor will be directly involved in this research project
so that all aspects of technology transfer are addressed in a systematic manner.